Three-Body Recombination at Cryogenic and Ultracold Energies

Work will focus on needs for new theory in three-body recombination (both charged-particle and neutral-particle) at ultralow energies, relevant to the formation of anti-hydrogen and to Bose Einstein Condensate (BEC) experiments. Several significant and basic collisional mechanisms need to be described. Areas of concern include Stark-mixing transitions, collisional transitions, vibrational quenching and collisional re-dissociation.